SusChEM: Using theory-driven design to tailor novel nanocomposite oxides for solar fuel production

Title: SusChEM. The Design of Materials to Harvest and Store Solar Energy in Chemical Bonds: Tailoring nanocomposite catalytic structures for artificial photosynthesis.

The basis for this proposed research is the fact that more of the sun's energy hits the face of the earth in two hours than is consumed globally in a year. Yet only minor amounts of sunlight are currently harvested to meet an ever-growing energy demand. The conversion of sunlight to chemical energy is a promising strategy to deliver greater use of solar energy and to provide a variety of possibilities for local, off-the-grid energy storage. The particular focus of this research is the light-driven conversion of CO2 that opens up new strategies for developing closed loop carbon cycles, a key aim of sustainability. To undertake this effort, an award is made to Professors Kimberly Gray, Justin Notestein and Eric Weitz of Northwestern University in line with the SusChEM initiative. An international and interdisciplinary team of catalysis experts has been assembled utilizing the US-Ireland R&D Partnership program. This international R&D Partnership leverages funding from the Irish and UK governments. This team has unparalleled capabilities to carry out theory-driven design, synthesis and testing of multifunctional catalysts that will separate and control the distinct steps of the complex series of reactions around sunlight-driven CO2 conversion. The goal is to improve the fundamental understanding of the mechanisms of CO2 photo-reduction and as a result, the achievement of much higher product yields and energy conversion efficiencies than is currently possible. Researchers on this project will also participate in a Climate Change and Sustainability Professional Development Series that connects middle and high school teachers to cutting-edge academic research and provide STEM enrichment to a racially and economically diverse student population.

The photochemical fixation of CO2 to energy rich products, essentially artificial photosynthesis, whether for solar energy storage or the production of potential feedstock chemicals, involves an exceedingly complex system of reactions requiring novel, multifunctional nanoarchitectures that can harvest visible light, stabilize charge separation, reduce the heterogeneity of surface sites, activate CO2, and control the reaction pathway. The overarching hypothesis of the proposed work is that multi-functional nanocomposite metal oxide clusters supported on a semiconductor surface that couple photo- and thermal catalysis can be designed from first principles, and then synthesized and engineered in order to convert CO2 to useful two-electron reduction products selectively and with greatly improved efficiency. The research integrates theory, synthesis, characterization, mechanism interrogation and application and links the efforts of three research teams in a coordinated fashion providing feedback to inform next steps. First principles modeling will be used to design nanostructures tailored to CO2 conversion, followed by sophisticated and controlled synthesis techniques to execute these designs and then, the verification of their efficacy by rigorous structural and functional characterization and scaled-up engineering testing. This is feasible only through a team effort, which will then offer a compelling and potentially transformative strategy to improve fundamentally the efficiency and selectivity of CO2 reduction chemistry and process engineering.